The Development of Self-Assembling Conducting Oligomers and Polymer Superstructures

In this proposal funded jointly by the Divisions of Chemistry and Materials Research, McCullough will synthesize and characterize novel conducting organic polymers and oligomers designed to yield predictable, oriented structures using self-assembly, ion-binding, and/or biomimetic assembly methods. The self-assembling, conducting systems are based on oligomers and polymers of thiophenes or pyrroles with functionalized side chains. Information about self-assembly in electronic and photonic oligomeric materials will result from study of the synthesized oligomers. The electrical, structural, and non-linear optical properties of each of these new oligomers and polymers will be examined in detail in order to focus on strategies for the design and control of structures and properties in advanced materials. The research performed in this work is not only of fundamental interest, but it also forms the basis for exciting new technology for the coming century. Among the electronic and photonic applications of the materials to be examined in this project are optical modulators, imaging materials, light-emitting diodes and displays, smart windows, and nanoelectronic and optical devices.